Singularities of the Kahler-Ricci Flow, Einstein 4-Manifolds and Seiberg-Witten Theory

Abstract

Proposal: DMS-9803549
Principal Investigator: Huai-Dong Cao and Jian Zhou

We propose to study certain problems in geometric analysis, including
the asymptotic behavior of the Kaehler-Ricci flow, the study of
certain Ricci flat four-manifolds, and Miyaoka-Yau Inequalities on
closed Einstein four-manifolds. For the Kaehler-Ricci flow, we would
like to understand the structure of certain gradient Kaehler-Ricci
solitons, which arise as limits of dilations of singularities of the
Ricci flow. This has important applications in Kaehler geometry and
may lead to new knowledge and new insights in the field of geometric
evolution equations. It turns out, as our research indicates, that the
study of gradient Ricci solitons has a close link to the symplectic
geometry of existence of closed orbits for certain special Hamiltonian
vector field. For the second problem, our goal is to classify
asymptotically locally Euclidean Ricci-flat four-manifolds via
Seiberg-Witten theory. This is related to the generalized positive
action conjecture of Hawking and Pope. For the third problem, note
that a remarkable consequence of the existence of a Kaehler-Einstein
metric on a Kaehler surface is the Miyaoka-Yau inequality between the
Euler characteristic number and signature of the underlying
four-manifold of the Kaehler surface. In this proposal we also propose
to study the interesting question whether every closed oriented
Einstein four-manifold satisfies the Miyaoka-Yau Inequality.

The Ricci flow is an important geometric "heat" equation. In general,
heat equations describe the process of changes of tempreature of
material to a steady state. The Ricci flow describes changes of
metrics. Its "steady state" is an Einstein metric, whose existence is
of fundemental importance in geometry, topology, and general
relativity. Our proposal relates nonlinear partial differential
equations, differential and complex geometry in mathematics, and
gravity, general relativity in physics. A thorough understanding of
the problems proposed should advance our knowledge in these aspects
and give us new insight.